Collaborative Research: Workshop for Women in Machine Learning

Since 2006, the annual workshop for Women in Machine Learning (WiML) has brought together female
researchers in industry and academia, postdoctoral fellows, and graduate students from the machine
learning community to exchange research ideas and build mentoring and networking relationships. The
one-day workshop has been especially beneficial for junior graduate students, giving them a supportive
environment in which to present their research (in many cases, for the first time) and enabling them to
meet peers and more senior researchers in the field of machine learning. The networking opportunities
provided by the workshop have also helped senior graduate students find jobs following graduation.
Intellectual Merit: This workshop will advance machine learning knowledge and foster collaboration
within the machine learning community. As invited speakers, established researchers at top universities
and research labs will teach workshop participants about cutting-edge ideas from diverse areas of
machine learning. Students will present their own research and receive valuable feedback from both
senior researchers and their peers. By enabling women at all stages of their careers in machine learning to
exchange research ideas and form new relationships, we expect that new connections and research
collaborations will be established, thereby advancing the state-of-the-art of the field.
Broader Impact: This workshop will provide a forum for female graduate students, postdoctoral fellows,
junior and senior faculty, and industry and government research scientists to exchange research ideas and
establish networking and mentoring relationships. Undergraduates, particularly those who are interested
in pursuing graduate school or industry positions in machine learning, are also welcome to attend.
Bringing together women from different stages of their careers gives established researchers the
opportunity to act as mentors, and enables junior women to find female role models working in the field
of machine learning. The workshop will also benefit the wider machine learning community: Firstly, the
WiML website, which lists all previous workshop presenters, serves as a useful resource for organizations
looking for female invited speakers. Secondly, co-locating with a major machine learning conference
enhances the visibility of female researchers among the wider machine learning community. Thirdly,
travel funding provided to workshop participants also facilitates their travel to the co-located conference,
which for some participants would otherwise not be possible. Finally, all workshop materials (slides,
abstracts, etc.) will be made available on the workshop website in order to ensure broad dissemination.